Mathematical Sciences: Hyperbolic Geometry and Rigidity in Three Dimensions

9626233 Minsky Minsky will investigate a collection of problems centered on the basic classification conjectures in the field of hyperbolic 3-manifolds and Kleinian groups, and their connections to holomorphic dynamics. A prominent open question in this field is Thurston's Ending Lamination Conjecture, which states that a hyperbolic 3-manifold is uniquely determined by its topological type and a list of invariants that describe the asymptotic geometry of its ends. Consequences of this conjecture include a rigidity theorem for Kleinian group actions on the sphere, directly analogous to outstanding rigidity conjectures in holomorphic dynamics, and a topological description of parameter spaces of isomorphic Kleinian groups. Minsky previously established these conjectures in special cases, and the techniques developed show promise for extension to the general case. A number of projects have grown out of this program, whose successful completion should contribute to the solution of the conjecture, as well as being of independent interest. These projects investigate topological characterizations of Kleinian group actions on the sphere, some phenomena associated with geometric limits of Kleinian groups (with R. Canary and J. Brock), and the large scale geometry and combinatorics of the Teichmueller space of a surface (with H. Masur). Minsky is also considering (with M. Lyubich) a new construction that associates to a rational map a 3-dimensional hyperbolic object analogous to the quotient 3-orbifold of a Kleinian group. This object renders more explicit the powerful analogies between Kleinian groups and other holomorphic dynamical systems. In the study of low-dimensional geometry, topology and dynamics, one witnesses the depth of interconnection between fields of mathematics. Henri Poincare, who studied both celestial dynamics and complex analysis (among many other things), observed in the 19th century that the conformal transformations of the Riema nn sphere -- some of the building blocks of complex analysis -- extend to act on the three-dimensional ball bounded by the sphere, and their action preserves a complete, homogeneous metric, the metric of Hyperbolic or Non-Euclidean Space. This opened the door to a beautiful theory relating topology, geometry, and complex dynamics, which was only seriously explored in the latter part of this century. The rigidity problem mentioned above is essentially the question of to what extent the topological, or combinatorial, properties of a system determine its geometric properties. This and other basic questions in the field can be phrased in geometric, topological or dynamical terms, and are still linked to some of the motivating questions about physical systems of which Poincare was aware a hundred years ago. Issues such as classification of systems, mapping out regions of stability and instability, deformation and bifurcation of families of systems, and probabilistic properties such as ergodicity, all have significance in both pure and applied mathematics. Topology and geometry have already provided deep insights into such issues, and one hopes that further study of these interactions will continue to bear fruit. ***